Spatial and Temporal Dimensions of the Rhizopogon Spore Bank

Ectomycorrhizal (EM )spore banks are a fundamental,but poorly studied
component,of plant-fungal community ecology.EM spore banks can provide
the inoculum necessary for tree recruitment following severe disturbance and
may facilitate tree invasion into bordering non-forested areas.Rhizopogon species
are the most abundant component of spore banks in many western North
American pinaceous ecosystems,and in some forest-border settings they appear
to be virtually the entire spore bank.This proposal is focused on understanding
the spatial and temporal dynamics of Rhizopogon spore banks in the context of
cyclic fire and pine regeneration.A conceptual model for these interactions is
proposed,and five specific hypotheses related to the model are tested.These
hypotheses focus on differences in spore longevity and spore dispersal among
Rhizopogon species,and on differences in mode and frequency of dispersal within
mature-forests and post-fire forests.Measured parameters include:i)spatial
pattern of the spore shadow in forest border zones,ii)current dispersal rates and
modes into these zones,iii)spore longevity of three key Rhizopogon species and
iv)longevity of complex native spore banks.Hypotheses will be tested by
combining the techniques of bioassays,molecular ecology,large-scale spatial
sampling,and seed bank ecology.The work addresses a crucial,but essentially
unstudied,component of community ecology (i.e.,EM spore banks),and
provides an analogous system in which to test ideas developed for plant seed
banks.The broader impacts of this work are its direct relationship to forest
regeneration and expansion;the ability to predict the spatial and temporal extent
of the EM spore banks will provide forest managers with a rational way to assess
the likelihood of EM inoculum in highly disturbed systems.